Mathematical Sciences: Nonlinear Partial Differential Equations

This project will deal with specific free boundary problems arising in industry. Our objectives are to establish existences, uniqueness, and regularity of the free boundary problems. Some of the techniques to be used include the minimization of functionals, fixed point theorem and penalization method. These methods usually require some a priori estimates. It is often difficult to obtain these estimates when the problem becomes very nonlinear, which is often the case for problems related to industry. It is our task to overcome the difficulties and reach our objectives. These problems are of interest to industries such as those developing photocopying machines.